GOALI/IUCP: Air Turbulence Interaction During Fiberization Processes

DMI-9634828 Munoz Most of the fiber manufactured today is used for building and aircraft thermal insulation, ceiling tile, high-efficiency air filtration media, and commercial roofing systems. One of the most exciting applications for fibrous materials are their current and potential uses in composites. One advantage of short versus continuous fiber for reinforcing composite materials includes the rapid, low-cost composite manufacturability through compression, injection molding or extrusion. The success of short or discontinuous fibers for implementation in the manufacturing of advanced composites depends on the control of fiber length and bulk fiber orientation. In addition, small diameter (10m) fibers also result in improved thermal insulation characteristics. Therefore, manufacturers of refractory, glass and polymer fibers are particularly keen on controlling the fiber diameter in the industrial fiberization processes. In addition, improved control of fiber diameter may lead to significant energy savings in industrial furnaces. This research project investigate the air turbulence interaction during the fiberization processes. Experiments are designed to provide fundamental information regarding the air turbulence and fiber interaction. Objectives of the experiments include developing a relationship between the characteristics of the turbulence, fiber stiffness, fiber deformation, and fiber tensile force, while controlling the turbulence characteristics. This research project has strong collaboration between the Colorado State of Mines and Schuller International. More importantly, the work will likely have direct implications to other industries by providing an improved understanding of less expensive manufacturing alternatives to the older, more conventional continuous fiber manufacturing processes.